Structural, Metamorphic, and 40 Ar/39 Ar Studies of Proterozoic Tectonism in New Mexico

During the period 1800-1600 Ma, the North American continent grew by at least 20%. Amalgamation of these Proterozoic rocks into continental crust could have been accomplished in a number of ways. This project will investigate the nature, timing and significance of tectonic blocks of early Proterozoic age in northern and central New Mexico. Major shear zones separating the blocks will be a focus of research to specify the timing, sense of displacement, and pressure-temperature conditions across boundaries. Results are expected to clarify how these tectonic blocks were assembled, and with other data, to help develop a model of proterozoic accretion for North America.